Graduate Student Support: Formal and Empirical Training

This Empirical Implications of Theoretical Models training award affords the student the opportunity to take a year of courses at the University of Chicago in formal and empirical training. The training will involve formal course work in dynamic contract theory and the corresponding formal and statistical techniques. The training will strengthen the dissertation and future research on the study of international cooperation, organization, and law.

The training has the broader social value of enhancing understanding of the implications of domestic change for the sustainability of international cooperation.
It also strengthens the research and teaching skills of this future member of the professorate